Scattering Theory

DMS-9970614

The main interest of the PI is the study of resonances and of the wave
equation. Resonances which are described by complex numbers constitute
a replacement of eigenvalues for problems on noncompact domains and they
appear naturally in many branches of mathematics and physics. The real part
of a resonance describes the energy (or frequency) of a state and the
imaginary part its rate of decay. This constitutes a more realistic model
than an eigenvalue which provides energy only and assumes eternal existence
of a state. A new wealth of phenomena appears and our understanding is still
rather fragmentary. Linear and non-linear wave equations describe many
physical phenomena often closely related to resonances. In the contexts
of propagation, spectral and scattering theories the PI will investigate
them further. The specific directions include: understanding of the dynamical definition
of resonances and their appearance in the long time behaviour of solutions
of the wave and Schroedinger equations, obtaining lower bounds on
the number of resonances in terms of dynamical quantities, developing
the theory of the FBI transformation on non-compact manifolds with
applications to resonances and to the study of propagation for Schroedinger
equation in mind, estimates of resonances at low energies, understanding of
"quantum chaos" in scattering theory.

For a broad range of phenomena, a physical state can be described by two
parameters: its rest energy and its rate of decay. This information is
elegantly encoded in a complex number, whose real part is the energy and
the imaginary part, the rate of decay. This description of a state, called
a resonance, appears naturally in mathematics, physics and chemistry: from
the Riemann zeta function to experimental scattering data.

The PI studies general principles in the distribution of resonances,
their relation to wave propagation, and their behaviour in various specific
situations. He is also interested in "quantum chaos", the study of which
raises questions in many areas: from number theory to mezoscopic systems
of physics. The main issues are universal relations between the classical
and quantum views of the world -- one of the yet unresolved central themes
of the 20th century.